Presidential Young Investigator Award: Downstream Bioprocessing and Production Scale Displacement Chromatography

Displacement chromatography will be applied to increasingly complex biological mixtures. Chromatographic columns operated in the displacement mode will be subjected to alternate modes of operation prior to the displacement step to further increase throughput and purity. New displacer compounds will be identified and synthesized. The research will address fundamental questions about critical physico-chemical properties of displacers and help establish guidelines for selection of appropriate displacers for specific bioseparations. Group-specific affinity chromatographic materials will be investigated for use in the displacement mode. Emphasis will be on scale-up and optimization rules. Downstream bioprocessing is critical to commercial scale biotechnology. Production-scale displacement chromatography may prove to be a workhorse of the emerging industry. This work will help assure an adequate engineering knowledge base is developed in a timely manner so that US industries will be able to take a lead in international commercialization of biotechnology.